NSF 25-543 DFARM: A Smart, Connected and Distributed Community Food Production and Distribution System

This project will build a system called DFARM, which stands for Distributed Farm. DFARM will connect community gardens and indoor hydroponic systems located in homes, schools, and participating organizations throughout Knoxville, Tennessee. DFARM will assist this food community in setting food production goals and allocating the harvest among participating organizations and food banks to reach those most in need. The goal is for the system to handle continuously changing and scalable food production and harvest distribution resources, and frequent changes in constraints and community preferences. DFARM will foster local entrepreneurial food production and distribution. An innovative collective governance approach to managing DFARM will feature two non-profit organizations, Three3, Inc. and the United Way of Greater Knoxville, working closely together to build relationships and facilitate communications between researchers at the University of Tennessee, Knoxville, and the food community to collaboratively build DFARM.

This project will integrate computer science and social science to build a system that improves the effectiveness of urban agriculture. DFARM will be based on novel dynamic multi-objective programming approaches using genetic and evolutionary algorithms. Expected fundamental advancements to computing technologies include: an innovative human-in-the-loop approach to address the fluidity of community preferences; a human-centered approach to co-design the interfaces with the community; a fresh approach to gamification that emphasizes cooperation, collaboration, and altruism to increase engagement with DFARM; and finally a sensor platform to provide real time feedback on water levels and nutrients in these hydroponic systems to make them approachable for even novice growers.

The broader impacts of DFARM will help address food insecurity in Knoxville, Tennessee. This project will coordinate placement of hydroponic food production systems in homes, schools, and community-based organizations that will increase the capacity of Knoxville’s food community to grow more food throughout the year. DFARM will increase local knowledge about food production and nutrition and increase social capital. High school students and other young persons will be involved in setting up and managing the hydroponic systems. University of Tennessee, Knoxville students will contribute to software and sensor development.